Vertebrate Paleontology and Sedimentology of the CynognathusZone (late Early Triassic), Beardmore Glacier Region, Antarctica

This award supports investigators from Augustana College and Ohio State University in a joint vertebrate paleontologic- sedimentologic study of a new vertebrate locality in the Beardmore Glacier region of Anarctica where a late Early Triassic fauna, including abundant amphibians and reptiles of he Cynognathus Zone, was found during the final days of the 1985-86 field season. The fossils are found along the surface of an ancient stream channel, which has been exhumed by recent erosion. Further collecting will greatly enlarge the numbers of taxa in this fauna. The abundance of fossils and the ideal exposure of the sediments in which they occur will permit the group to carry out taphonomic studies, reconstruct the paleoecologic/environmental conditions for the late Early Triassic vertebrate community, and work out stratigraphic relations with other Gondwana continents.